Integrating Mathematics Programs and Computer Technology (The IMPACT Project)

This Leadership Activities project will provide enhancement and professional development experiences for 30 Montana mathematics teachers, grades 7-12, who will be selected on the basis of geographic distribution and leadership ability to become regional mathematics teachers and present workshops throughout the state. The IMPACT project's main goal is to develop a leadership program for mathematics teachers (7-12) that will result in a comprehensive statewide in-service program for mathematics teachers in these grades. Two two-year summer institutes featuring mathematics content and the use of computers as a regular component of the mathematics curriculum will be conducted. A carefully selected set of computer software specifically related to those topics ordinarily found in the 7-12 mathematics curriculum will be evaluated and organized for classroom use. Thirty teachers will be trained and 30 new teachers will be added the second year. These qualified leaders have the potential to impact 5000-8000 workshop participants over a five year period, thereby covering most of the state. This program will provide an opportunity for teachers who are expected to teach all 7-12 mathematics to learn about and use software at both the junior and senior high school levels. It has a wide cross-section of involvement including the private sector, the Office of Public Instruction, local schools, the State University system, and professional organizations.